Effect of Turbulence on Nucleation and Coagulation Rates in the Aerosol Synthesis of Titania Particles: A Numerical Simulation Study

ABSTRACT CTS-9417527 L. Collins It is proposed a Direct Numerical Simulation (DNS) method to analyze the effect of turbulence on the aerosol formation and coagulation of titanium dioxide pigment particles. Quantitative predictions of the rate of nucleation, particle collisions, growth rates, and the final particle size distribution will be obtained by calculating the coherent turbulent structure and using microstructural aspects of the two-phase flow system. The computational results will be compared to the experiments performed at the DuPont Co. The proposed method, if successful, will open a new approach to understand and predict the turbulent flow aerosol reactors, with application to advance materials. ***